Optimal Maintenance-Related Decisionmaking for Large- Scale Water Distribution System

The deterioration of the nation's water distribution systems is of vital concern to all communities. This project will develop a model to assist decision-makers in their efforts to determine repair, retrofit or replacement activities. The model will include the effects of pressure at various points and the effect of valves and pumps in the total system.